Segment-based Acoustic Models with Multi-level Search Algorithms for Continuous Speech Recognition

This award in the NSF/DARPA Joint Initiative on Image Understanding and Speech Recognition is for research on multilevel acoustic and phonetic models for large-vocabulary speaker-independent continuous speech recognition. Drs. Ostendorf and Rohlicek will use the hidden-Markov speech recognition system at BBN Systems and Technologies Corporation as a baseline, and will add multilevel phonetic segment modeling to improve performance. The grant includes support for several graduate and undergraduate students, as well as workstation hardware and software needed for speech recognition research.